Evaluation of the Arizona Collaborative for Excellence in the Preparation of Teachers Project.

This project evaluates the Arizona Collaborative for Excellence in the preparation of Teachers (ACEPT). It investigates the more lasting impact of the project on the community and the teachers trained through the project. This includes assessment of the impact of early reforms and more recent reforms and assessment of the effect on ACEPT graduates and their students. The project determines the impact on shaping the way graduates teach K-12 science and mathematics, whether or not reformed teaching methods significantly improve student achievement, and the change in the nature of college and university level instruction. The project tests hypotheses about why some teachers readily embrace reformed teaching methods while others remain resistant. This project provides valuable measurement instruments that can be used by other projects and data that helps in assessment of the impact of ACEPT and the CETP program.